Plutonism, Metamorphism and Deformation in a Mesozoic Active Margin: Continuing Interdisciplinary Studies in Southern Alaska

This proposal involves a combined structural, petrologic, and geochemical study of granitic plutons that formed in vast quantities in southern Alaska during Mesozoic to Tertiary time in a convergent margin setting. Because quite alot is already known about the region, detailed studies are likely to elucidate the problems of magma genesis and thermal-tectonic evolution in convergent margin settings.